The North Atlantic Current

In this project, scientists at the University of Rhode Island will study circulation and dynamical properties of the North Atlantic Central Waters in the Newfoundland Basin. A large scale, incoherent array of isopycnal RAFOS (Inverse SOund Fixing And Ranging) floats will be deployed to study intergyre exchange, particle dispersion, and mixing processes. A numerical modeling component will aid dynamical and thermodynamical interpretation of the observations.